SBIR Phase I: Anatomically & Physically Realistic, Multi-Dimensional Simulation Software for Respiratory Drug Delivery

0420006
Sundaram

This Small Business Innovation Research Phase I project proposes to develop anatomically and physically realistic simulation software for respiratory drug delivery by applying computational fluid dynamics methods from the aerospace industry.

The commercial application of this project will be to enable drug companies to examine the effect of their specific drug on different individuals.